Central States Section of the Combustion Institute 2010 Technical Meeting, March 21-23, Champaign, IL

1032688
Glumac

This award provides support for graduate-student travel to the Combustion Meeting organized by the Central States Section of the Combustion Institute (CSSCI). The meeting will be hosted by The University of Illinois during March 21-23, 2010 in Champaign, IL. NSF funds are targeted to increase the participation of graduate students at the meeting.

The CSSCI membership consists of combustion researchers from the following states:
Alabama, Arkansas, Illinois, Indiana, Iowa, Kansas, Kentucky, Louisiana, Michigan, Minnesota, Mississippi, Missouri, Nebraska, North Dakota, Ohio, Oklahoma, South Dakota, Tennessee, Texas, and Wisconsin. The CSSCI conducts technical meetings to promote the exchange of new ideas among combustion researchers from across the United States, in particular in the Central United States. The technical meetings are held yearly, and their organization alternates between the CSSCI and the US Sections of the
Combustion Institute.

The conference will consist of three days of primarily contributed presentations organized in multiple parallel sessions each day. The contributed presentations will include both podium and poster presentations. A few invited speakers will also present each day. Information about the availability of travel support to graduate students will be provided in all the meeting announcements and on appropriate websites. In addition, an announcement about the availability of travel support will be mailed to members of the Combustion Institute.

Combustion research is a multi-disciplinary field encompassing diverse disciplines in engineering and science. Society relies on combustion for power generation, transportation, and manufacturing. This conference allows combustion-focused researchers to exchange ideas in a stimulating technical forum. The intellectual merit of this activity arises from the participation of combustion experts from across the United States and from dissemination of their technical findings, their communications with students, and their visions of future research directions.

Support of this project will have the broad impact of promoting participation of students in scholarly workshops, training and education beyond the classroom, interaction among students from different universities, dialogue between students and senior researchers, and increased exposure to industrial and professional careers in the field of combustion.